The Interaction of Bean Alpha-Amylase Inhibitor With Insect Alpha-Amylase

9723426 Chrispeels Based on cloned genes for insect alpha-amylase and bean alpha-amylase inhibitors, the work will use crystallography, biochemical analysis, and site-directed mutagenesis for obtaining a structure model, and an understanding of active site requirements for a productive interaction between the two proteins. Considering the economical importance of crop protection, in this case insect predation of harvested biomass, the work must be rated highly significant from a biotechnological perspective.